Travel Support for Conference in Honor of Hendrik W. Lenstra, Jr.; March 21-23, 2003; Berkeley CA

At the end of Spring, 2003, Hendrik W. Lenstra Jr. will leave his position at U.C. Berkeley and begin working full-time at the University of Leiden in the Netherlands. During his 17 years at Berkeley, Lenstra wrote articles on arithmetic geometry, algebraic number theory, computational number theory, cryptography and commutative algebra. He frequently found innovative ways of tying these fields together. Through his articles and outstanding lectures, he made people in each of these fields aware of the others. One purpose of this conference is to honor Lenstra. However, the main intent is to bring people together from these fields. This conference will be an opportunity for new collaborations among people in different fields and to strengthen the knowledge of the
participants about the fields outside of their primary focuses.

Hendrik W. Lenstra Jr. is leaving his position at U.C. Berkeley after spending 17 years making contributions to several fields of mathematics, as well as the field of cryptography within computer science. Cryptography is an important part of national security. Lenstra frequently found innovative ways of tying these fields together. Through his articles and outstanding lectures, he made people in each of these fields aware of the others. In addition to honoring Lenstra, this conference will bring people together from these fields. This conference will be an opportunity for new collaborations among people in different fields and to strengthen the knowledge of the participants about the fields outside of their primary focuses.